Geochemical and Isotopic Evolution of the Pore Waters of theCreede Formation, Colorado

The proposed study will test the hypothesis that Creede Formation sediments (Colorado) were a major source of mineralizing fluids for the Creede ore district and will quantitatively evaluate the geochemical and isotopic evolution of pore waters in the Creede Formation. The Creede Formation sediments have undergone a complicated history that appears to include low temperature alteration by fluids of controversial salinity and later hydrothermal alteration. The project will involve a combined observational and computational study to characterize the sediments and porewaters of the Creede Formation. Previously collected outcrop samples and core samples from two planned drill holes undertaken as part of the Continental Scientific Drilling Program will be studied. The mineralogy, texture, chemical and stable isotopic composition, and age of chemical sediments and authigenic minerals, including zeolites, K-feldspar, clays, carbonates, and saline minerals will be characterized. Analytical techniques will include XRD, petrography, SEM, electron microprobe, stable isotope geochemistry, and laser 39Ar/40Ar and K/Ar age dating. The principal investigators will work closely with Robert Rye (USGS, Denver) and Marvin Lansphere (USGS, Menlo Park) in the collection and interpretation of stable and radiogenic isotope data. They will also develop quantitative models of the diagenetic alteration of Creede sediments using a geochemical and isotopic mass transfer computer program. They also hope to gain new insights into this and other similar systems by incorporating a broad spectrum of mineralogical and geochemical methods with state-of-the-art geochemical and isotopic modeling to develop and integrated model of the depositional, diagenetic, and hydrothermal history of the Creede Formation.